Buoyancy Induced Convection

This study deals with a primarily experimental investigation of a number of aspects of buoyancy-induced heat transfer. Specific areas of interest are natural convection in differentially heated layers inclined at various angles to the direction of the gravitational body force; convection from open cavities; and the flow of thermal plumes in a stratified layer. Mass transfer systems will be used in some of the studies to simulate heat transfer. Many of the experiments will be performed with high Rayleigh number flows where turbulent model predictions are uncertain. The results should serve as a testing ground for numerical calculations as well as provide important heat transfer correlations.